Acquisition of In-Situ Heating and Ambient Controlled X-Ray Deffraction Tool: For Remote Research and Education

9704269 Alford This award provides partial support by The Division of Materials Research, The Office of Multidisciplinary Activities, and the Arizona State University for an X-Ray Diffractometer (XRD) configured with a High Temperature Sample Stage Assembly for materials research. This diffractometer will serve as a remote analytical tool that can be accessed by students and researchers in the class room and at other locations. Students and faculty at Arizona State University (ASU) will use the diffractometer to create new fundamental knowledge in the science and engineering of interconnect materials systems and processes for future (< 0.18 m) integrated circuit technologies. Silver metallization is the technology driver for future microelectronics interconnect systems. This investigation concentrates on the in-situ study of metal conductor materials (silver and its alloys) during thermal processing in controlled ambients. This effort will extend upon preliminary advances in both i) Ag and Cu metallization materials science and processing and ii) x-ray diffraction (XRD) analysis of thin film SiGeC alloys. %%% In collaboration with the ASU Office of Youth Preparation, ASU undergraduates and graduate students from the Materials Research Society (MRS) and the National Society of Black Engineers (NSBE) will be organized and sponsored to present science exhibitions to Elementary and High Schools in Phoenix. Students from MRS and NSBE will conduct XRD demonstrations at the local schools and will be able to control the tool remotely via a Internet connection. A x-ray characterization course is being planned and will be offered at ASU in collaboration with Maricopa Community College District. This course is on modern XRD analysis techniques for specimen analysis and it will be delivered to ASU students, Community College students, and local industry. This unique analysis tool will complement characterization facilities provided by the ASU Center for Solid State Science as well as the High Resolution X-ray Facility. This organizational structure leverages facilities and integrates a number of research and education programs at ASU, including the Alliance for Minority Programs at ASU, the NSF- funded curriculum development grant in the Synthesis and Processing of Materials, and the NSF/University/State Center for Low Power Electronics. ***